Exploratory Research in Performance Analysis of Concurrency in Multiprocessor Systems by Statistical Physics Analogies

This project uses tools and methods of statistical mechanics to introduce a unified computational approach to analyze the performance of large-scale multiprocessor systems. The aim is to derive a small amount of "macroscopic" information about system (thermodynamic) averages, despite the vast complexity of "microscopic" interactions (a "microscopic" theory dealing with interactions of each processor with other system components is likely to overwhelm the user with detail and fail to adequately understand the system behavior - this is analogous of studying the trajectory of each molecule of a gas when we are interested in steady-state averages). Therefore, it seems natural that the complexity existing in multiprocessor systems is the sort of complexity that ought to yield to some sort of treatment analogous to statistical mechanics. The approach is to use a physical analogy between the execution of a parallel algorithm on a multiprocessor system and a physical system to obtain fast approximation methods for the performance analysis of concurrency. An approach to analyze critical phenomena ("hot spots") in large multiprocessor systems is suggested by analogy to critical phase transitions in physics. The results will be compared with extensive measurements and simulations on a multiprocessor to provide empirical evidence for the viability of the approach. Success in this effort would mean the establishment of a general and unified approach for a "macroscopic": description and analysis of multiprocessor performance.